NSF Student Participation Grant for 2021 IEEE International Conference on Green and Sustainable Computing (IEEE IGSC)

The goal of this proposal is for participation support for undergraduate and graduate students to attend the Twelfth International Green and Sustainable Computing Conference (IGSC), which will be a Live Virtual Event. In particular, this is to provide students with a unique experience through the virtual conference attendance where they can present their work at the Student Research Forum and meet with peers and experts in their research area. These funds will focus on women, underrepresented minorities,
and non-author students and provide them the opportunity to virtually attend the conference and participate in its Student Research Forum.